LTER: CAP V: Investigating how relationships between urban ecological infrastructure and human-environment interactions shape the structure and function of urban ecosystems

Humankind is increasingly an urban species and urban ecosystems are therefore profoundly important. Cities are concentrated consumers of energy and resources and producers of various wastes, but they are also centers of social networks, innovation, efficiency, and solutions. The Central Arizona–Phoenix Long Term Ecological Research program (CAP V) is a research project that includes scientists from a variety of disciplines focused on understanding cities as hybrid ecosystems including both environmental and human components, and their interactions. Understanding urban ecosystems remains the central focus of CAP V after 25 years of innovative research. The interconnectedness of human motivation, behavior, actions, and outcomes with urban ecosystem structure and function leads to a fundamental question addressed by this project. How have/are human-environment interactions mediated by urban ecological infrastructure to shape past, present, and future ecosystem functions? This project will further indicate how we can use knowledge of these relationships to inform transformative, and sustainable futures. Broader impacts are integrated in CAP V research, with activities involving partnerships with practitioners and communities. This work forms a translational link among ecological research outcomes, city institutions, and communities with the goal of ultimately making Phoenix, and cities in general, better and more sustainable places to live.

CAP research will extend its focus on the theory of Urban Ecological Infrastructure (UEI) as a critical bridge between the system’s biophysical and human/social domains. CAP researchers will continue to explore interdisciplinary urban ecology in residential landscapes, urban waterbodies, desert parks and preserves, while examining the plants, animals, climate, urban design and governance across the metropolitan Phoenix region. New research initiatives will include a focus on urban air quality and develop both knowledge and practical solutions with and for local communities. CAP V research is organized around five interdisciplinary areas: 1) ecosystem structure and function and biogeochemical cycling; 2) adaptation and eco-evolutionary dynamics; 3) urban climate and air quality; 4) urban nature and human perceptions, decisions, and wellbeing; and 5) governance for transformative futures. Investigating these questions, in the context of the previous 25 years of CAP research, will guide the CAP research endeavor towards more sustainable and resilient futures for U.S. cities and for our increasingly urban society.

This award is jointly funded by the Division of Environmental Biology and the Division of Behavioral and Cognitive Sciences.